EPSCoR Research Fellows: NSF: Advancing Kinetic Modeling of Low-Temperature Plasma through GPU-Accelerated High-Performance Computing

This Research Infrastructure Improvement (RII) EPSCoR Research Fellows project provides a fellowship to an Assistant Professor and training for a graduate student at the University of North Dakota. This work is conducted in collaboration with Dr. Mark Shephard at Rensselaer Polytechnic Institute. Through the fellowship, the PI will develop efficient numerical algorithms and models to study low-temperature plasma on high-performance computing platforms powered by graphics processing units (GPUs). Using the developed computational tools, this research will investigate long-standing questions in electric space propulsion and plasma-surface interactions in microelectronics. Plasma, known as the fourth state of matter, plays a crucial role in a wide range of applications, including space propulsion, semiconductor manufacturing, materials processing, and water treatment. The project will expand computational research capacity in North Dakota, provide students with hands-on training in numerical methods and plasma physics, and broaden STEM workforce development.

This project will advance the computational modeling and simulation of low-temperature plasma by developing numerical algorithms and models for particle-in-cell (PIC) simulations on GPU-accelerated high-performance computing platforms. It will create accurate, scalable, and efficient algorithms for high-fidelity PIC simulations on unstructured meshes. These algorithms will be integrated into a modern computational framework capable of handling hundreds of billions of PIC simulation particles and operating on thousands of GPUs. The project will employ rigorous verification and validation to ensure reliable results across multiple time and length scales. Using this framework, the project will investigate low-temperature E × B plasma discharge in electric space propulsion, including anomalous electron transport and plasma-surface interactions, which are also relevant to microelectronics. The project will enhance the PI’s expertise in low-temperature plasma modeling while providing training opportunities for both graduate and undergraduate students in plasma physics and high-performance computing. It will strengthen computational science research at the University of North Dakota and foster collaboration. This project is supported by the EPSCoR Research Infrastructure Improvement Program: EPSCoR Research Fellows, which supports early- and mid-career investigators in eligible jurisdictions to develop collaborations at the nation’s private, government or academic research institutions.